Improvement in Biological and Geological Sciences LaboratoryInstruction and Student Research Through the Use of a Scanning Electron Microscope

9451844 Burtt Understanding external and internal microstructure and its chemical composition is essential to understanding the function and development of biological and geological systems. A high resolution, computer-driven scanning electron microscope with a cryopreparation system and an X-ray Energy Dispersive Detector provides a versatile teaching and research tool for undergraduates. Cryopreparation eliminates hours of preparation time, which makes the SEM usable by many students as part of laboratory exercises associated with courses. The energy dispersive detector is vital to analysis of chemical composition, which is important for geology students who must determine mineral composition of samples and biology students who may look at the chemical composition of pesticides deposited on leaves. Students will use the SEM in the laboratory portion of many courses, but it will also be an important tool for student research, which is strongly encouraged. Through lecture/demonstration, laboratory exercises, and student research the project will impact 917 students/year.